An Immuno-Mimetic Sensor-Actuator using Novel Polymeric Vesicles as Artificial Lymphocytes

An Immuno-Mimetic Sensor-Actuator
using Novel Polymeric Vesicles as Artificial Lymphocytes
Project Summary
In this program the principal investigator will develop a breakthrough sensor-actuator, mimicking the immune system to identify, amplify signal from, and respond to low levels of multiple target compounds in
a wet environment. This compact (and potentially chip-based), smart system will continuously
monitor a test space and provide independent real time chemical feedback to multiple stimuli.
Microelectronics could be integrated into this stand-alone device for added functions.
The proposed technology exploits novel polymeric vesicles that will act as artificial
lymphocytes, a type of white blood cell. The polymeric vesicles are a new invention, made of
tough membranes that will encapsulate amplification or response molecules. Different surface
receptors on different vesicles will code for target compounds that, when present in the testing
environment, will activate particular vesicles. The test solution flows through an amplification
cascade (a rough mimic of bone marrow) to replicate only the activated vesicles. Replicated
vesicles (a crude mimic of plasma cells) will return to the test space to release response compounds
such as drugs or inhibitors to counteract the target compound(s) detected.
The replicator cascade is like a photomultiplier tube (PMT), with amplification occurring on
each of several stages. The proposed device is, however, more advanced because, of the many
target compounds cataloged, only those in the test space will be amplified. In the device, specific
adhesive interactions facilitate separation of activated vesicles from those not yet activated. While
the latter are recycled, activated vesicles are lyzed to release each test compound (or analog
thereof), at a concentration higher than that at the stage inlet. This solution passes to the next stage
where the process repeats, giving a powerlaw dependence of amplification on the stage number.
This program will conduct the science and device development necessary to form the basis
of a single stage that later could be combined with others to produce the cascade. At the stage
level, the goal is to maximize amplification, maintaining selectivity for activated vesicles (not
triggering the non-activated ones.) To accomplish this, the scientific investigation will address
how adhesive interactions between receptors on vesicle and separator surfaces could be tuned
through receptor placement and macroscopic parameters. Fundamental adhesive behavior will be
assessed using micropipette aspiration methods (paralleling studies of cell adhesion) and compared
with adhesive performance in device prototypes. Results will be interpreted using formalisms
established for cell adhesion, appropriate for specific adhesive groups on a membrane capsule in a
flowing solution.
The specialized vesicles and their replication cascade form a sensor-actuator system whose
end applications bridge a number of industries, from biomedical uses to chemical process control
and environmental monitoring (closed bodies of water) and response. The proposed scientific
investigation targets designs that meet the constraints for a robust technology that will be
implantable or submersible. The scientific team bridges academic disciplines and specialty areas to
combine expertise in polymer interfaces, biomimetics, adhesion, and MEMS. Graduate and
undergraduate students from different engineering and scientific backgrounds will benefit from this
synergistic approach to research, which preserves fundamental rigor and emphasizes engineering
creativity.